Nuclear Theory

The main focus of this theoretical work is on pion- nucleus scattering (elastic, inelastic, charge exchange) at energies near the delta-resonance. It will explore the possible outcomes of hadronic experiments that may be acheived with future meson facilities. In addition work will be done on di-lepton production in heavy ion collisions and the production of high-spin hadrons in future proposed intermediate energy reactions.